Coordination Theory Workshop (Computer and Information Science)

The purpose of this workshop is to bring together leading researchers from a variety of different disciplines (including computer science, economics and organization theory) that can contribute to the creation of "coordination theory"--a body of principles about how to coordinate the activities of separate actors. One of the intriguing aspects of this interdisciplinary approach is the possibility of exploiting parallels between: (a)coordinating groups of people; (b) coordinating groups of computer processors or program modules, and: (c) coordinating hybrid groups that include both people and computers. The primary activity at this workshop is to explore these issues in more depth, focussing on specific research papers. The workshop will be held February 17-19, 1988 at MIT's Endicott House conference center in Dedham, Massachusetts. A major outcome of the workshop is expected to be an agenda for research and possible funding for this new area.